Curves in algebraic varieties

DMS-0301179
Thomas B. Graber

The investigator will study several problems related to the geometry of
curves mapping to algebraic varieties. In particular, he will use the
geometry of the space of relative stable maps to the projective line as a
tool to study the Chow ring of the moduli space of curves. He will use
the space of twisted stable maps to study the behavior of Gromov-Witten
theory for Deligne-Mumford stacks. He will study the geometry of
rationally connected varieties. These projects have different objectives,
but are unified by the central role played by the deformation theory of
morphisms of curves and intersection theory on moduli spaces.

This project is rooted in the very classical mathematical study of Riemann
surfaces. Questions in this area can now be studied much more fruitfully
due to the influence of ideas from string theory. These techniques have
made accessible a host of quantitative and qualitative questions about the
geometry of solutions to systems of polynomial equations. The
investigator will take advantage of these physical insights to pursue
purely mathematical questions in algebraic geometry.